Experimental Nuclear Physics

This grant to a University of California at Davis faculty member supports experimental research in relativistic heavy- ion collision physics, focusing on the development of the thermodynamic variables which describe the heating, compression, and flow of nuclear matter. The experiments will be carried out using primarily the AGS synchrotron at Brookhaven National Laboratory. Work on the preparation of the STAR detector for the Relativistic Heavy Ion Collider under construction at Brookhaven is also supported.